University - Industry Cooperative Research Programs in the Mathematical Sciences- Graduate Research Assistantships in Industrial Mathematics

Graduate research assistants in industrial mathematics are placed at Johnson Controls, Inc. (JCI), and at Penta Technologies. These collaborations strengthen the Marquette's educational and research missions in faculty research in industrial mathematics, industrial partnerships, and research training, and deliver business-critical industrial mathematics solutions to JCI and Penta. At JCI, a manufacturer of automotive seats and batteries and HVAC controls, the student will investigate chaos theory models of the enterprise and measures of enterprise agility with validation using real data and will explore scoping/targeting systems analysis. We will develop simple mathematical models and business gaming simulations of the problem and then use traditional operations research tools such as econometric models and computer simulations. JCI's work on biological and ecological paradigms of the enterprise are complemented and enriched by the technical expertise and resources of Marquette University. At Penta, a business solutions provider for the engineering and construction industry, the student will use mathematical modeling and nonlinear global optimization techniques to develop a software distribution system aimed at providing maximum flexibility in the delivery of real-time updates. Penta is actively exploring on-line software distribution and product update systems to deliver software to clients in a timely manner. The review, design, development, and implementation of the SDS will be coupled with a mathematical analysis of SDS optimization for a heterogeneous environment of customer sites. We will determine components causing the greatest constraints to SDS on-time delivery. The data will include load-balancing, internet transport rates, real-time computational time, and human-interaction delays. This data will be used to develop an optimization model that will be solved to address the most critical bottlenecks in the system. This GOALI project is jo intly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).